Physics of Novel Superconducting Structures

This research deals with the physics of novel superconducting microstructures: uniform submicron particles, mesoscopic interfface structures, and magnetic flux coupled superlattices. The research employs novel vacuum deposition and micro-electronics fabrication methods. The research can lead to improved understanding of certain outstanding problems of high-Tc superconductors and the fabrication of microstructures which exhibit new quantum interference phenomena. Where appropriate, potential applications of the research to superconducting devices will be explored. The submicron particles will be used in experiments to measure the temperature dependence of the penetration depth anisotropy, critical field enhancement and their relation to conduction anisotropy, interlayer coupling, pairing symmetry, and finite size effects. An experiment is proposed to determine the quasiparticle energy spectra, and search for quantum interference effects in mesoscopic structures. The flux coupling structures will potentially provide DC transformers with multiple secondaries and large coupling ratios.